STTR Phase I: Development of a coral reef-friendly sunscreen with broad spectrum protection

The broader impact/commercial potential of this Small Business Innovation Research (SBIR/STTR) Phase I project is to commercialize the world’s first sunscreen that protects against UVA-induced photoaging, provides sufficient UVB protection and to reverse UVB-induced damage, and is safe to coral reefs. Leading sunscreens that are currently on the market have been shown to be inadequate in protection against UVA damage (photoaging). Moreover, Oxybenzone and octinoxate, which are found in over 80% of chemical sunscreens, have been shown to be highly toxic to coral cells. Estimated 14,000 tons of sunscreen settle into the world’s coral reefs every year and the oxybenzone that is present in many of these sunscreens cause coral bleaching and accelerate the destruction of the world’s already fragile coral reefs. The Magic Blue sunscreen uses an alternative eco-friendly technology to protect the skin from UVA and UVB damage, and the successful commercialization/market adoption of the Magic Blue sunscreen will significantly benefit the global environment by protecting our aquatic ecosystems, especially coral reefs, from further oxybenzone/octinoxate-induced damage.

This Small Business Innovation Research (SBIR/STTR) Phase I project will develop a novel coral reef-friendly sunscreen that can provide broad spectrum protection. Magic Blue, LLC is partnering with the University of Maryland, College Park and collaborating with the Carnegie Institution for Science to conduct the key feasibility experiments, including biological analysis of UVA protection in 2D and 3D human skin tissues, chemical assays on SPF determination, and environmental study on the effects of the new sunscreen on soft and hard coral reefs. Once these experiments are complete, Phase II of the project will revolve around obtaining necessary FDA approval for commercial launch. The overall outcome from a successful STTR project will be the commercialization of the world’s first sunscreen that will encompass the following attributes: scientifically proven to protect against UVA-induced photoaging, abilities to provide sufficient UVB protection and to reverse UVB-induced damage, and safe to coral reefs.